NSF Young Investigator

9357232 Raizen This NYI award will support the research of a promising and accomplished young investigator. His research will include an experiemental study of interference in atomic fluorescence and collective behavior, and of momentum transfer of light to a cold, neutral atomic beam. ***